Design and Analysis of CDMA Receivers for Fading Multipath Channels

This project is a study of Code-Division Multiple-Access communication over fading multipath channels. The overall objective of the research is to design and analyze practically implementable adaptive receivers for reliable, bandwidth-efficient, and near-far resistant communications. The feasibility of the project is established via new results in receiver design and analysis that achieve these objectives for the nonselective fading, synchronous CDMA channel with memory. Receiver complexity is of fundamental importance in CDMA communication and the new idea of group detection is proposed to address that issue. It is shown that the adaptive receiver designed for the fading channel with memory far outperforms the conventional spread spectrum receiver. This research will consider the development of schemes that will realize the practically achievable limits of bandwidth-efficient CDMA communication over general fading multipath channels. Analytical tools from the theories of detection, estimation, minimax robustness, optimal filtering, dynamic programming, digital filtering, large deviations and error probability bounding techniques for optimum sequence detection problems will be applied, and new analytical tools sought.